Conference: Transatlantic Uncertainty Colloquiem (TAUC): Making Environmental Decisions in spite of Uncertainty to be held @ Athens, GA & Washington DC (April 2006)

The US Environmental Protection Agency (EPA) and the Netherlands Ministry of the Environment have engaged formally with the issue of uncertainty in science for environmental policy, but have paid little attention to what the other agency is doing. Beck, Oye, and Reckhow want to identify the challenges for research at the interfaces among science, policy, technology, law and society through organizing a workshop that would involve key American and European scholars. Besides producing papers and a major article, the workshop will contribute toward forming a collaborative network.